GK12 Track II: Boston University Urban Fellows Project

This proposal describes a Track 2 GK-12 project that will combine the best aspects of two existing GK-12 projects: Project STAMP (Science, Technology and Math Partnerships) and the CPS (Center for Polymer Studies) into one project focused on Fellows working in urban school systems. The GK-12 Boston Urban Fellows Project will support 26 Fellows and Boston University will support 65 Fellows to work in Boston Public Schools, Chelsea Public Schools and Quincy Public School districts. Boston University is providing financial support to this project and is also committed to broadening the existing GK-12 courses to other graduate students at the institution. The project will also create a STEM instructional course for teachers. The project includes a comprehensive evaluation to identify lasting effect of the project on Fellows, teachers and K-12 students.